RIA: Designing and Implementing a Distributed Meeting Scheduler

Routine, time-consuming, and repetitive information processing tasks performed by employees in organizations can be potentially automated. Possible benefits from automation include relieving employees to concentrate on relatively fruitful and productive jobs, and in improving the quality of work by eliminating human errors that are inadvertently introduced due to the tedious nature of work. A candidate task for automation is that of scheduling meetings between individuals. Though past efforts have produced necessary techniques for building distributed agents that can schedule meetings on behalf of associated users, much work remains to be done in encoding user goals and constraints before a useful system can be implemented. The proposed research will produce an efficient implemented system that effectively schedules meetings without compromising user preferences and constraints. This will fill a void in the currently available calendar management software. This research will involve developing a language and inference procedure to specify and reason about user preferences, building models of agents from limited information, and developing negotiation mechanisms to coordinate partially cooperative agents. A unique contribution of this research lies in developing intelligent agents that are adaptive to the environmental demands and the needs of associated users at the same time. These techniques will be a significant contribution to the evolving field of Distributed Artificial Intelligence, and can be gainfully applied in fields like Cooperative Information Systems and Computer Supported Cooperative Work.